The Stability of Autonomous Agents in Dynamic, Complex Manufacturing Environments

9409192 Barber This award, in the Small Grants for Exploratory Research mode, funds initial exploration of artificially-intelligent agent-based architectures for manufacturing automation. Manufacturing automation engineers agree that the manufacturing domain is complex and dynamic. Manufacturing solutions must move toward agent-based architectures which better model real world behaviors and knowledge at any instance in time. Agents perform a particular task or responsibility to achieve a specified goal. A multi-agent system is comprised of these intelligent agents responsible for their own communication, diagnosis, repair, control and configuration. One of the critical considerations for sensible agent behavior is level of autonomy. The extent of autonomy can be distinguished from locally-autonomous to consensus (negotiation) to command-driven. The level of autonomy describes the ability of an agent to execute behaviors independent of approval or direction from other agents within the system. This research addresses two topics vital to the success of manufacturing automation: formal engineering methodologies and the distribution of planning, monitoring, and control through autonomous agents. The proposed research objective is to develop a theoretical model for the stability analysis of autonomous agent behaviors operating in distributed, multi-agent systems. Responsibility-driven object-oriented methodologies will serve to provide a formal procedure by which agents are identified, specified, modified, and maintained. The theoretical stability analysis model promotes the practical deployment of autonomous agents in manufacturing solutions by enabling agents to analyze and consequently behave sensibly incorporating an understanding of both global and local goals.